Compounds of Selenium and Tellurium with Main-Group, Transition Metal and Lanthanide Element Bonds

Dr. John Arnold, Chemistry Department, University of California - Berkeley, is supported by the Inorganic, Bioinorganic, and Organometallic Chemistry Program of the Chemistry Division to study the interactions of the heavier group 12 elements with metals. This largely synthetic chemistry project targets the design of chalcogenate ligands that will stabilize specific metal-chalcogen interactions and the use of these ligands to prepare a range of chalcogenate compounds. Analogs of metal alkoxides and thiols will be prepared with chalcogenolate moieties, -Se-R and -Te-R, whose `R` groups are designed to yield molecular species with stable metal-selenium or -tellurium bonds. The reactions and mechanisms of these compounds will be systematized. There are a number of advanced electronic materials which are based on metal-selenium and -tellurium systems. Selenium and tellurium chemistry, however, is not yet well understood. This project aims at the preparation of new types on metal compounds that contain stable metal-selenium and -tellurium bonds and at systematizing the chemical behavior of these linkages. By knowing the typical reactions of M-Se and M-Te bonds, new routes to electronic materials may be designed.